CC-NIE Network Infrastructure: ASCED -- An Advanced Scientific Collaboration Environment and DMZ

NSF CC-NIE Network Infrastructure
ASCED - An Advanced Scientific Collaboration Environment and DMZ
M.K. Gardner, S.W. Ellingson, K.R. Bisset, R.B. Knapp, and E.J. Brown

Collaboration in scientific discourse is as much about building
community as it is about data sharing. It is about discipline-specific
web portals to ease data discovery and to facilitate access. It is
about validated tools for working with the data and about the means
for replicating results. It is about data curation and management. It
is about controlling access to the data in order to obey regulatory
requirements. And it is about the social interactions between
scientists. Successful collaborations already address these issues,
but in ad hoc ways. New collaborations must tackle the same challenges
over and over gain. It would be much more productive if a standard
infrastructure existed for building and hosting collaboration
environments and communities.

The Advanced Scientific Collaboration Environment and DMZ (ASCED) is a
standardized infrastructure, based upon open source components, for
building and hosting scientific communities. It is built upon the
Science DMZ, an infrastructure for efficiently sharing data, by
including a private cloud for hosting collaboration environments. It
supports role-based access control, facilitates data management, and
provides PIs with tools for abiding by regulatory requirements. It is
a standard base upon which scientific communities can be built,
allowing future proposals to focus on the specifics of their research.
It is also envisioned that ASCED will be used as a platform for
educators to engage students at all levels. And it can be a platform
for engaging the public, both in the dissemination of results and in
participating in research.